Loebner Prize Competition

This grant partially supports the administration of the competition to determine the winner of the Loebner Prize. The Loebner Prize is an award established to recognize the first computer system that can pass the Turing Test of machine intelligence. "This test requires a computer to emulate human behavior so well that it is impossible for human judges to distinguish the response of the computer system from responses of a person."